CCLI: Instructional Materials to Promote Interactive Engagement in Semiconductor Device Courses

This project is developing novel instructional materials for undergraduate courses on semiconductor devices in electrical engineering. The material includes a set of Excel spreadsheets incorporating Visual Basic macros, which plot many internal device variables and constitute a real-time, virtual laboratory for interactive experiments on the devices. The other component is the accompanying in-depth exercises designed to provide structured interactive engagement with the simulations and underlying course material. Effectiveness is being evaluated by using these materials in one of two sections of a course with the other serving as a control group. The assessment process is using a new concept inventory on semiconductor devices, examination grades, and discussion with student focus groups. The PI plans to disseminate assessment results from the pilot project.